Structure-Function Analysis of alpha-Neurotoxins

Certain snake venoms contain toxins, called alpha-neurotoxins, which cause muscle paralysis by blocking the normal action of the neurotransmitter, acetylcholine, at its site of action on the muscle surface. One of these toxins, called alpha-bungarotoxin, has been particularly useful to biochemists interested in studying the acetylcholine receptor on the muscle membrane. In order to understand the action of these toxins at the muscle receptor and to determine what it is about the alpha-bungarotoxin molecule that targets it for the muscle receptor, synthetic genes can be produced for this protein. With the gene in hand one can develop a procedure for preparing large amounts of genetically- modified toxin. By systematically altering different parts of the toxin protein, one can identify the sites on the toxin which "recognizes" the receptor. The determination of the structural changes in the protein will depend on sophisticated new techniques taking advantage of instrumentation using high magnetic fields and radiofrequency pulses. This type of recognition is also how drugs recognize their target sites. This work will help us understand the chemically-important structures which allow chemicals and biological molecules to interact.